CRLT: Taming the Complexities of Modern Manufacturing: A Network Enabled Virtual Factory to Support Exploration and Learning in Engineering Education

9616373 Bailey, Diane University of Southern California CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies: Taming the Complexities of Modern Manufacturing: A Network Enabled Virtual Factory to Support the Exploration and Learning in Engineering Education The University of Southern California has been awarded a 1-year grant of $237,298 to start on the development of a virtual factory on the World Wide Web to present manufacturing complexities in an understandable form for university engineering students. University instructors will use the workspace to illustrate the concepts of factors management in a realistic setting, and students will assume roles of various factory personnel in small team settings. Student teams may span institutional boundaries thus allowing information-sharing among students and professors at a number of institutions.